ENGINEERING RESEARCH EQUIPMENT: In-Situ Spectroscopic Ellipsometer

ABSTRACT -- CTS-9310997 PI -- Costas P. Grigoropoulos The Department of Mechanical Engineering at the University of California at Berkeley will purchase an In-situ Spectroscopic Ellipsometer equipment which will be dedicated to support research in engineering. Ellipsometric measurements yield the optical properties of bulk and thin film materials, over a wide spectral range and up to high temperatures. The equipment will be used for several research projects, including in particular: (1) "Thermal Phenomena in Thin Films," Research on the investigation of radiative and thermal transport in thin film structures. (2) "Heat Transfer in Excimer Laser Materials Processing and Micro-machining," Research on the investigation of pulsed laser techniques for thin film fabrication and micro-machining. (3) "Pulsed Laser Removal of Small Particles from Solid Surfaces," Research on the investigation of rapid phase change transformations at the nanosecond time scale.